Effective Non-oscillation of Solutions of Fuchsian Systems of Differential Equations and Abelian Integrals

PI: Dmitry Novikov / A. Gabrielov, Purdue University
DMS-0200861

Abstract

%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%%
D. Novikov and A. Gabrielov propose to investigate the global
finiteness properties of solutions of Fuchsian systems of ordinary
differential equations. The goal of this research is to establish
effective upper bounds on the global oscillation of polynomial
combinations of these solutions in terms of quantitative
characteristics of the Fuchsian systems, and to apply these results
to the infinitesimal Hilbert's sixteenth problem. The main interest
is the oscillation of solutions near confluent singular points of
the hypergeometric equation.

Stable oscillations of many natural systems in biology, electronics,
engineering, meteorology, etc., are described by limit cycles in the
corresponding dynamical systems. If the dynamical system is close
to a conservative one, its limit cycles correspond to zeros of
an Abelian integral, a solution of an ordinary differential
equation with polynomial coefficients. Unlike solutions of
algebraic equations, such functions can have many zeros even
when the coefficients are low-degree polynomials. The goal of the
proposed research is to give an effective upper bound on the number of
these zeros in terms of the magnitude of the coefficients, and the
corresponding upper bound on the number of limit cycles of the
dynamical system. This can be considered as an effective version
of the famous Hilbert's sixteenth problem.